Strength Enhancing Mechanisms in Polymer Concrete

The research is directed at overcoming two of the major problems associated with the use of polymer concretes: shrinkage during curing which results in residual stresses, and creep during service, which leads to delayed failure under static loads. The approach taken toward controlling curing shrinkage is the introduction of a mineral phase which loses water and expands during curing, thus offsetting the shrinkage associated with resin polymerization. This effort will also include research into the substitution of other, lower boiling liquids for the hydration water in the mineral, to achieve greater effects at lower curing temperatures. The creep problem is to be attacked by providing a detailed characterization of the creep behavior of the material-i.e., through the provision of an accurate constitutive law for the material, and through 3-D finite element analysis to elucidate the effects of various material modifications (aggregate size, shape, size distribution, inclusion of fibers, etc.) on the creep behavior, to provide a basis for optimization of polymer concretes for creep resistance.